Engineering Research Equipment Grant: Photodiode Array UV- Visible Spectrophotometer

A photodiode array UV-visible absorbance spectrophotometer will be purchased. This instrument will be used for analytical studies related to research in liquid membrane separations and enhanced oil recovery.